Firm Specific Menu Costs, Imperfect Competition, and Sticky Prices

9410626 Jackson This research will examine how commercial bank deposit rates respond to changes in market interest rates, and how the speed of response depends on market characteristics. The empirical study uses data on the interest rates banks set for different types of deposits. The empirical models control for the way banks in different localities change prices in response to changes in national Treasury Bill rates, and allow for the possiblity that banks determine service quality, among other things. This project is significant because it provides results that would be a useful contribution to our knowledge of the importance and determinants of price rigidities in the banking industry.